RUI: Capability Analysis for Production Processes

The objective of this research is to investigate the statistical properties of various process capability indices. These indices are used in many industrial settings to determine the quality of product received from suppliers as well as the effectiveness of competing vendors. The development of new methodologies for assessing process capability without making any distributional assumptions is also part of this research effort. Research will address both significant scientific and practical issues in the area of statistical quality control. Results should produce an impact on academia and industrial communities.